RPG: Melt-induced Fracturing During Partial Melting: Consequences for Melt Migration and Melt Geochemistry

9526591 Rushmer The proposed Research Planning Grant will experimentally investigate the micropermeability that develops during melting as a function of the melting rate and the processes by which melt migrates from localized melting sites at the onset of reaction. Externally-heated, cold seal experiments under fluid-absent conditions will be run initially at 800C and 850C and 3 to 5 kbar. The results from these experiments will enhance our fundamental understanding of the rates and mechanisms controlling melt generation and segregation at the source, will provide new information which will help in the interpretation of natural geochemical data, and will enhance our understanding of the potential geochemical trace element abundances produced during melt segregation and the process of melt segregation itself.